Efficient induction of new mutations at defined loci of the zebrafish

9420984 Grunwald A new method for mutagenizing zebra fish (Danio rerio) will be developed and optimized. Mutations will be induced in mature sperm with ethylnitrosourea, a potent point mutagen. Founder zebrafish derived from such mutagenized sperm are a rich source of new mutations and can be selected by a failure to complement pre-existing mutations. There are three features of this method which make it a potentially powerful source of new mutations: Germ lines will harbor independent mutations at a frequency of 1-2% at any pre-specified locus; the germ lines of the founders are genetically mosaic; preliminary studies indicate that most of the induced mutations are intragenic mutations. The goals of this proposal are to optimize the mutagenesis procedures and to establish the frequency of germ line specific locus mutations in the founder population; to demonstrate that new and informative mutant alleles of a developmentally important gene can be recovered; and to recover and analyze mutations that affect single genes encompassed by a deletion mutation. %%% Zerbrafish are rapidly becoming important experimental organisms for the study of development. However, while their are many advantages to their use, one serious disadvantage is the lack of an easily manipulated genetic system. The development of a method to generate new and different developmental mutants for analysis will serve the purpose of optimizing this system . ***